SGER: Design of a Biomolecular Distributed Operating Systems

Biomolecular molecular computation (BMC) uses biochemical methods to do computation at the molecular level. The goal of this research is to determine key required capabilities of a distributed operating system (BMC-OS) for BMC, including: (i) distributed flow of control,(ii) distributed message transmission and message handling, (iii) distribution and retrieval of data and files,(iv) locality optimizations, (v) data integrity assurance, an(vi)distributed I/O. The effort is focusing on a few key topics which have the most impact on the design of a BMC-OS :(a) Integrity Assurance, Decreased I/O and Error Resiliency--a combination of computer science and biochemical techniques are being used to do data fingerprinting and a very high fan-out data distribution method (using redundant coding) will be used to increase data error resiliency. (b) Models and Simulation Software for BMC-OS--Parameterized performance models are used to reflect the geometric and other constraints (e.g., solution and reagent concentration, spatial distribution of DNA strands, temperature, salinity, etc.) on the BMC-OS control, including the application of MEMs technology to automate BMC.